High Deborah Number Flows of Viscoelastic Liquids in Long Tubes with Geometrically Complex Cross-Sections

9320037 Leonov A combination of theoretical and experimental research will be conducted to describe secondary laminar flow of viscoelastic fluids in channels with non-circular cross-sections. Rectangular, elliptical, and trapezoidal sections are to be imvestigated. The theoretical models for the fluid will be the Giesekus model and one developed by the Principal Investigator. The numerical simulation will be with Finite Elements. The experiments will be with several non-Newtonian liquids, to be rheologically characterized. Measurements will be with LDV and birefringence techniques. Secondary flow can occur in internal flow passages such as occur in molding and extrusion of polymeric materials. It affects processing pressures and the final shape of manufactured parts. ***